U.S.-Italy Summer School: "High-Pressure Phenomena" - A Summer School at the Enrico Fermi International School of Physics, Varenna, Italy

0118576
Hemley

This twelve-month award will provide support for15 US students and junior researchers to participate in the first multidisciplinary summer school on "High Pressure Phenomena" held at the Enrico Fermi International School of Physics in Varenna, Italy, from July 3-13, 2001. The course spans fundamental physics and chemistry, earth and planetary science, materials science and technology, and biology. The PI will co-direct this school with Guido Chiarotti of the International School for Advanced Studies in Trieste, Italy. The course is largely financed by the Enrico Fermi school, the Italian Society of Physics (SIF), Italy's National Research Council (CNR), and UNESCO. At least 80 participants - students, observers, and lecturers - are expected to attend. The course offers opportunities for graduate students and post-doctoral fellows to learn many fundamental concepts applications of high-pressure research. It provides as well the opportunity to develop further international research experiences or collaborations in these fields.